EPR Imaging

Three principal investigators will continue their present achievements of multidimensional images of chemically interesting system by electron paramagnetic resonance (EPR) imaging. The work will focus on obtaining a decrease in the data acquisition time, on developing improved algorithms for image reconstruction, on preventing magnetic field gradient interference with magnetic field control, and on pulsed EPR imaging. These studies promise to enhance the possibilities for the application of EPR imaging to a number of important systems in chemistry, materials, and medicine. %%% The research, in the general area of Analytical and Surface Chemistry, focuses on an extension of the investigators previous work on electron paramagnetic resonance imaging. The usual electron paramagnetic resonance experiment reports a spectrum averaged over the sample and the magnetic field. The spectrum provides information about the unpaired electron spin density in the sample. In imaging experiments this spin density is mapped over the sample to give a three dimensional image showing the location and intensity of the paramagnetic molecules. The approach has potential in materials science, biometical studies and in the chemistry of non-uniform materials.